Development of Undergraduate Chemistry Laboratories Via a Fourier Transform Infrared Spectrophotometer

The Department of Chemistry is purchasing an FT Infrared Spectrophotometer to develop a new series of undergraduate polymer chemistry laboratory experiments and enhance introductory and advanced organic chemistry laboratories. The instrument allows the introduction of a variety of modern laboratory experiments in physical, analytical and biological chemistry into the undergraduate curriculum. The instrument is also being used